Spectroscopic Study of Copolymer Systems

This research is to permit the principal investigator to plan and do exploratory experiments on the dependence of copolymer surface structure on inherent molecular parameters. The work is being done as a Research Planning Grant under the Research Opportunities for Women program.